Contact Geometry, Fano Orbifolds, and Einstein Metrics

ABSTRACT DMS - 0203219.

Professors Boyer and Galicki propose to investigate several
projects in geometry and topology. The objective of all the
projects is to study fundamental questions in Riemannian
Geometry with two main focal points: Contact Geometry of
orbifold bundles over Fano varieties and the existence of some
special (i.e., Einstein, positive Ricci curvature) metrics on such spaces.
The questions and problems proposed here are deeply rooted in the
principal investigators' earlier work which exploited a fundamental
relationship between contact geometry of Sasakian-Einstein spaces and
two kinds of Kaehler geometry, namely Q-factorial Fano varieties with
Kaehler-Einstein orbifold metrics with positive scalar curvature, and
Calabi-Yau manifolds with their Kaehler Ricci-flat metrics.
The most recent work of the principal investigators has led to an
important breakthrough in the study of such structures when,
using recent results of Demailly and Kollar, the principal investigators
were able to construct new examples of compact Einstein manifolds in dimension
5 as well as many positive Einstein metrics on families of rational
homology 7-spheres. The techniques used by the principal investigators borrow from
several different fields; the algebraic geometry of Mori theory and intersection
theory, the analysis of the Calabi Conjecture, and finally the
classical differential topology of links of isolated hypersurface
singularities. These methods can be extended much further and in
various directions. An example that stands out in this respect is the
question of the existence of Einstein metrics on exotic spheres, which is
one of the main objectives of this proposal. More generally the principal investigators
want to address several classification problems concerning compact Sasakian-Einstein
manifolds in dimensions 5 and 7. These two dimensions are important for two separate
reasons. In view of earlier work higher dimensional examples can be constructed using
the join construction. At the same time these two odd dimensions appear to play special
role in Superstring Theory. In the context of recent developements in
String and M-Theory the principal investigators also propose to
investigate some related problems concerning self-dual Einstein metrics in
dimension 4 and exceptional holonomy metrics in dimension 7 and 8.

This project is intended to further the understanding of the mathematics
of certain important types of geometry. While this endeavor is not
directly motivated by advances in technology, the history of mathematics
adequately demonstrates that today's pure mathematics often becomes
tomorrow's applied mathematics. Indeed the mathematics being considered in
this project is currently being used in the field of Elementary Particle
Physics, more specifically, in the attempts at understanding a unified
description of the fundamental forces of the universe.

-